Multiple RF Ion Trap Coupled to Orthogonal TOF Mass Spectrometer

Abstract Reinhold
Mass spectrometry (MS) coupled with methods to fragment ions is fundamental
for elucidating molecular structures in biology. Combining mass measurements
with fragmentation patterns is necessary as the bare ion mass (to arbitrary
precision) often fails to identify the ion's molecular structure. The
development of ion trapping mass spectrometers (based on Paul or Penning
traps) allows multiple sequences of ion isolation and fragmentation (MSn).
These instruments allow the disassembly of complex ions into components,
generating a nested hierarchy of fragmentation patterns. The ensemble of
fragmentation patterns substantially extends what can be determined by mass
spectrometry. Ideally, combining ion disassembly with knowledge of fragment
dissociation patterns could allow structural understanding for almost all
complex biomolecules, e.g., peptides, oligosaccharides, lipids, and
glycoconjugates. As important as these advances have been, it is also clear
that present MS instruments fall short of the developing needs in biology.
The explosion of genome data has accelerated a shift in biology from
focusing on individual molecules and interactions into a focus where complex
networks of interactions at the cell and organism level are studied.
Addressing these demands will require MSn analyses of mixtures of complex
molecules and a major limitation of present instruments is the loss of
sensitivity in such MSn analyses. Ions are lost by deliberate ejection
during the isolation of a specific component and by incidental and unwanted
losses through dynamical instability during the instrumental execution of
MSn steps. The objective of the research is to develop a new technology for
MSn analyses that will eliminate or substantially reduce these losses.

Computer simulations of ion motion in radio frequency ion traps of a novel
geometry have suggested that it is possible to couple these devices and use
the array of coupled traps as a new type of MSn instrument. A prototype mass
spectrometer consisting of a coupled series of ion traps mated to an
orthogonal time-of-flight mass spectrometer will be built. The mass
selective transfer of ions between trapping regions and characterizing ion
dissociation within the traps are the immediate experimental objectives.

Experimental analysis of the prototype combined with computational
simulations will be used to direct future development of this class of mass
spectrometers as analytical instruments. Correlating the observations with
numerical models of the device will also aid the general technology of
simulating (hence designing) gas phase ion manipulation instruments.
Substantially higher performance MSn mass spectrometry will be an important
component in the technologies that address the analytical challenge of
genome-era biology.